LTER: Experimental Isolation of Direct and Indirect Mechanisms in the Trophic Cascade from Fish to Phytoplankton

Predators can have strong impacts on ecological communities, but causality is often difficult to infer because of the myriad direct and indirect species interactions between predators and prey. One of the most widely demonstrated predator effects is the "trophic cascade" in lake ecosystems. Planktivorous fish can reduce the abundance and size of zooplankton, and this results in an increase in phytoplankton abundance. This cascade usually consists of several direct and indirect species interactions, although the importance of specific mechanisms in causing the phytoplankton response is not clear. Possible mechanisms include: 1) reduction of zooplankton grazing rates, 2) increase in release of nutrients by zooplankton, and 3) release of nutrients by fish. Preliminary experiments and calculations suggest that the latter mechanism may be more important than previously believed. This research proposes to experimentally address these mechanisms using a series of nested, hierarchical experiments to be conducted in lakes which are sites of whole- lake predator manipulations. By complementing whole-lake perturbations with mechanistic experiments, a clearer understanding of aquatic food webs will emerge. Resultant information will contribute to limnological theory and will be directly applicable to the knowledge base useful in lake management.